Lehigh/Harvard Geometry and Topology Conference

Abstract

Award: DMS- 0511215
Principal Investigator: Susan Szczepanski, Huai-Dong Cao,
Donald M. Davis, David L. Johnson

The Co-PI's of this project will organize and host the next
occurrences of two important conferences on geometry and topology
cosponsored by the hosting institutions and the Journal of
Differential Geometry. The first conference will be held in May,
2005 and will be hosted at Harvard University, Cambridge ,
Massachusetts. This conference will be international in scope
and will highlight recent developments in the field of geometry
that will likely determine the primary direction of research in
this area for the next several years. The other two conferences
will be the next occurrences (thirteenth and fourteenth) of the
Lehigh Geometry and Topology Conference and will be held on the
campus of Lehigh University, Bethlehem Pennsylvania in June, 2006
and June, 2007. These conferences will be international in scope
as well with a combined emphasis on the areas of geometry and
topology. All three conferences will be designed to attract
participants at all stages of careers from a large geographic
area.

Prominent researchers will be invited to prepare lectures for the
general audience on a range of topics highlighting significant
recent research developments and their connections to the fields
of geometry and topology as well as the applications of results
in topology and geometry to other areas of mathematics and
science. All attendees will be encouraged to present current
research results and to participate in mathematical discourse.
In particular, special effort will be undertaken to ensure that
this conference will benefit individuals in the early stages of a
career in mathematical research. Financial support will be
provided to undergraduates, graduate students, recent PhD's and
untenured assistant professors, and members of under-represented
groups; the invited speakers will be expected to serve as their
mentors by providing comment and suggesting additional problems
for study.

This award is funded jointly by the programs in Geometric Analysis
and Topology.